Ocean Circulation Studies

In this project, four separate tasks will be carried out, evolving form or using data obtained by the P.I. over the last three years. Studies will focus on: 1. Sub-Arctic Intermediate Water (SAIW), a major source of recently ventilated water in the North Atlantic; 2. Water mass properties nad circulation in the Cascadia Basin in the Northeast Pacific Basin; 3. Near-surface velocity structure on sections across the North Pacific; and 4. Oceanic subduction in the subtropical gyre of the North Atlantic.